CT-T: Resource-Guided Implementation of Secure Embedded Software

NSF 0524059

Resource-guided Implementation of Secure Embedded Software

Stephan Zdancewic, Rajeev Alur, Andre Scedrov

This project aims to advance the technology for designing and
implementing security-sensitive software for networked, embedded
systems. The strategy unifies two approaches that can contribute key
elements to the needed technology. The first approach provides
security for distributed systems by using language-based information
flow controls, a technique for annotating code with confidentiality and
integrity requirements and using these requirements to determine the
necessary placement of code in a networked system characterized by
complex trust relations between distributed agents. The second
approach, model-based design, expresses protocols and systems at a
high level of abstraction suitable for automated analysis techniques
that can reveal design errors, and provides synthesis tools that
automate low-level platform-specific details, thereby reducing coding
errors. The approach, called resource guided model
transformation, will allow the designer to express systems and their
security requirements at a high level, including annotations for
resource constraints of the target platform. This research program
focuses on the development of foundational theories and tools for correctness
preserving transformations of these models and protocols, facilitating
the synthesis of secure distributed software. The project
investigates the effectiveness of this methodology by implementing
secure transaction systems using Java Card technology.